Combining Imperative and Constraint Programming in Inter- active and Parallel Computing

The rapid evolution of interactive and parallel computing has not been accompanied by a similar evolution of languages to support these models. This research is to investigate a programming model for parallel applications based on a declarative paradigm that has an interface with characteristics of popular spreadsheet model of programming. It includes multi-ways constraints and action procedures that can be triggered when constraints change the values of variables. It will support general purpose programming and will handle flow-of-control problems which become difficult in large projects with parallel processing. An important advantage of the spreadsheet model is that it is a clear step away from the traditional batch processing approach to the production of interfaces. It is a step toward an interactive environment for interface design which gives the end user control of the development process. Furthermore, it provides a mechanism for programming parallel processes directly in an interactive manner. The spreadsheet interface does not itself assume a specific underlying parallel processor architecture. Likewise, it does not require the user to specify the details of flow-of- control, a serious problem for parallel processing. An interactive capability, which also handles flow-of-control for parallel processing, is expected to impact industrial design cycles dramatically, particularly for large projects.